Towards enabling a 2-3 orders of magnitude improvement in call handling capacities of switches

Toward building large-scale switches, the current industry focus is on increasing packet handling
capacities of switch fabrics from Gb/s to Tb/s. Although an increase in packet handling
capacities and line card data rates requires a corresponding increase in call handling capacities of
switches, this problem has received little attention. This is because most of the work on scalability
of packet switch fabrics has targeted connectionless internet protocol (IP) routers, while call handling
arises only in connection-oriented networks. However, in the last few years, resource reservation
to support Quality-of-Service (QoS) guaranteed flows has gained attention. Internet
Engineering Task Force (IETF) is addressing this issue by augmenting IP routers with connection-oriented
capabilities.
In a connection-oriented network, the signaling protocol that is used to set up and release connections
impacts its call handling capacity. Signaling messages can be complex with many parameters
and timers and the state information associated with calls can become unwieldy.
Consequently, signaling protocols have traditionally been implemented in software. QoS control
solutions are being developed and evaluated based on the premise that call handling capacities do
not scale with the packet handling capacities of switch fabrics. This assumption regarding call
handling capacities has also relegated circuit-switched networks, including high-speed Wave-length
Division Multiplexed networks, to just serve as wires. This proposal challenges this basic
assumption by demonstrating call handling capacities in the order of millions of calls/sec. Changing
this basic assumption regarding call handling capacities would indeed have a far-reaching
impact on both QoS control mechanisms for packet-switched networks, and on the use of emerging
high-speed circuit-switched networks for challenging new applications.
Our solution approach is to implement signaling protocols in reconfigurable Field Programmable
Gate Array (FPGA) hardware. FPGAs can be reprogrammed as signaling protocols evolve
while significantly improving the call handling capacities relative to software implementation. To
manage complexity, we propose to implement the basic and frequently-used operations of the protocol
in hardware, and relegate the complex and infrequently-used operations to software. In contrast
to stateless protocols, signaling protocols maintain state information for each call. To
manage associated memory requirements, we propose to maintain only the essential state information
for each call in hardware. In this project we propose to (i) implement a typical signaling
protocol in FPGAs, (ii) design a switch controller board using the signaling protocol FPGAs, and
(iii) quantify measures of the implementation to demonstrate achievable call handling capacities.